Structure and Tectonics of Central Tibet from Re-Analysis of Oil Exploration Data

0106861
Brown
The style, magnitude and timing of Tertiary deformation in the central Tibet Plateau remain poorly known, but such information is central to discriminating among the various models for the origin of plateaus. Subsurface data is required to document accurately the amount of shortening and other parameters. A series of seismic lines have been obtained by the China National Star Petroleum Corporation and these data have been made available for this project. Reprocessing and interpreting these data are expected to greatly improve understanding of Tertiary deformation on the Tibet Plateau.